Powder-decorated Laser Powder Bed Fusion: Understanding Spattering Suppression Towards Additive Manufacturing of High-performance Metallic Materials

This award supports research to make laser-based metal additive manufacturing (AM) more reliable, affordable, and widely usable by tackling one of its most challenging and limiting problems: spattering-induced defects during the printing process. When high-powered lasers melt metal powders to build a part layer by layer, some powder particles and tiny droplets are violently ejected from the melt pool, much like sparks from a welding torch. These ejected particles, known as spatters, can land on the previously solidified layers, creating pores, cracks, and rough surfaces that weaken the final products. As a result, many promising alloys are currently considered difficult‑to‑print or even non‑printable, increasing costs and constraining design choices for manufacturers. To tackle this challenge, this research aims to innovate a new strategy using “nano-shield.” By decorating metal powders with ultra-thin, two-dimensional (2D) nanomaterials, the researchers create a flexible wrap around the powders that helps keep powders in place and stabilizes the molten metal, dramatically reducing the harmful spatters that lead to defects. By enabling the ability to reliably print defect‑free, high‑performance metal parts, this work will strengthen U.S. manufacturing competitiveness, lower production costs, and bolster national defense and energy systems. At the same time, the award is expected to secure the nation’s technological future by training a next-generation manufacturing workforce through new college courses, hands-on research, and community outreach programs that bridge the gap between cutting-edge science and real-world prosperity.

The research project will establish and validate a powder‑decorated laser powder bed fusion (PD‑LPBF) framework, designed to mitigate detrimental spattering behaviors by neutralizing both solid and liquid spatter during laser AM of metallic materials. Central to this approach is the decoration of metal micro-powders with large-aspect-ratio 2D nanomaterials. It is hypothesized that this 2D-architecture acts as a “dual-phase regulator,” serving as a physical mass-ejection barrier that suppresses solid spatter through aerodynamic screening, while simultaneously modulating melt-pool thermo-fluid dynamics to inhibit liquid spatter. This research program is structured into four tightly integrated tasks combining fundamental physics, advanced computational modeling, and experimental investigations. First, the investigators will develop multi‑physics numerical models and in‑situ diagnostics to quantify the competition between vapor recoil pressure and surface tension on the melt pool surface, establishing quantitative conditions needed to suppress liquid metal spatter. Second, the investigators will use kinetic Monte Carlo simulations, electron microscopy, and controlled gas‑flow experiments to elucidate how the nanoscale powder decorations generate a protective screening force that stabilizes the powder bed against gas-driven ejection. Third, these foundational force balances will be integrated into a computational fluid dynamic–discrete particle method framework, complemented by high‑speed imaging, to resolve the trajectories, velocities, and statistics of spatter particles. Finally, these mechanistic insights will be applied directly to a benchmark difficult-to-print titanium aluminide alloy, demonstrating processing windows that minimize spatter‑induced defects while achieving the high mechanical performance demanded by the aerospace and energy sectors. Ultimately, this work will deliver broadly applicable physics principles, process-aware diagnostic tools, and data-driven guidelines that can be adapted to other alloys and advanced manufacturing processes. The knowledge is expected to transform how metal powders and laser parameters are engineered, enabling robust, efficient, and predictable laser-based metal AM for a wide range of industrial sectors.